Collaborative Research: CyberAI Innovation: Educating the Future Workforce in Secure Agentic AI Software Development through an Open Learning Platform

Artificial intelligence (AI) coding tools are becoming standard in software development, yet AI-generated code can introduce vulnerabilities such as SQL injection, buffer overflows, and unsafe memory management. Students across computing and non-computing disciplines increasingly use these tools but often lack the skills to identify and mitigate associated security risks. This project will address this workforce need by preparing students to develop, evaluate, and secure agentic AI software systems.

The project will develop OpenSecCoder, an open-source experiential learning platform for secure agentic AI software development. OpenSecCoder will extend OpenHands, an open-source agentic coding framework, by integrating sandboxed execution environments, static analysis tools such as open-source large language models, and benchmark suites into a single extensible teaching workspace adapted for multi-user classroom deployment. The project will produce eight hands-on labs aligned with the OWASP Top 10 for Agentic Applications and three curriculum modules for computing and non-computing students, including one requiring no programming prerequisite. Faculty development workshops will support adoption, and the platform is expected to serve approximately 1,000 students annually at the University of Texas at San Antonio and the University at Buffalo. All software, labs, and curriculum materials will be released as open-source resources to enable broad institutional adoption and strengthen national cybersecurity capacity.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.